Projected Hessian Updating Methods

This project will investigate numerical methods for solving nonlinear programming problems. The problems involve minimizing a nonlinear function subject to a set of nonlinear equality and inequality constraints. Sequential quadratic programming (SQP) methods are particularly effective for solving problems of this nature. It is assumed that first derivatives of the objective and constraint functions are available, but that second derivatives may be too expensive to compute. Instead the methods typically update a suitable matrix which approximates second derivative information each iteration. We are interested in developing SQP methods which maintain an approximation to second derivative information projected onto the tangent space of the constraints. The main motivation for the work is that only the projected matrix enters into the optimality conditions for the nonlinear problem. We will investigate issues relating to both the global and local convergence properties of algorithms. These include the choice of quasi-Newton update, active set strategy and merit function. The main goal is two-fold: to produce efficient and reliable software and to provide a theoretical framework for these methods.